L-Asparaginase in Aspergillus Nidulans

This project combines new molecular biological approaches with biochemical approaches in the analysis of the regulation in the ascomycetes. Aspergillus nidulans, of the synthesis of two L- asparaginase. The L-asparaginase (encoded by ahrA) is under nitrogen metabolite repression (ammonium repression), as well as oxygen repression, both mediated by the positive-acting areA gene product which regulates approximately 100 different genes. The second L-asparaginase (encoded by apnA) appears not to be under this type of regulation. This three year project involves: 1) The isolation and sequencing of the two L-asparaginases genes. 2) Defining the size of the L-asparaginase genes by subcloning and complementation or hybridization and the sequencing of these genes, verifying the genes by gene disruption. 3) Analysis of mRNA produce by each of these under repressed and derepressed conditions and sizing of the mature mRNA. This will include measurement of transcript prevalence and rates of synthesis. 4) Overexpression of these genes in E. coli for further characterization and collaboration with Dr. D.G. Poplack, M.D., Head, Leukemia Biology Section, Pediatric Branch, NCI. The significance of this project lies in its contribution to the theory of gene regulation, enzyme multiplicity and possible divergent evolution in lower eukaryotes. From and educational point of view, the project itself can benefit undergraduate student because it can be divided into a series of separate small projects suitable for students working in pairs or individually. Each student would learn basic biochemical and molecular biological techniques.